Engineering Research Equipment Grant: A Spectra Physics Argon Laser

This Engineering Research Equipment Grant will enable purchase of a replacement high-power argon ion laser for use by the quantum electronics group at Berkeley (headed by professor Whinnery, Wang, Gustafson and Smith). Current research uses include pumping a colliding-pulse-modelocking (CPM) femtosecond laser system, pumping a dye laser head for generation of a tunable probe beam for making direct measurements of gain coupling of modes in a semiconductor laser, and measurement of the performance of photorefractive crystals in a context of an optical neural network. Several experiments centered around the high power argon ion laser utilize the femtosecond pulse facility. Passively modelocked CPM lasers which are pumped with CW argon ion lasers achieve the shortest optical pulses demonstrated to date, however, low jitter timing synchronication with optical and/or electrical devices is difficult. The Berkeley group has developed a mechanism using a pulsed optical phaselock loop that utilizes a gain switched semiconductor laser which is cross correlated with the femtosecond pulse train at its leading edge, resulting in a time jitter of only 50 femtoseconds. This unique pulsed optical phase lock loop (POPLL) is at the heart of a subpicosecond optical sampling system. It is currently being used to measure and model picosecond optical devices, and to look at stimulus and probe experiment in quantum wells where the stimulus is provided by a synchronous microwave signal.